Measurement of Nuclear Moments Using Beta-NMR/LMR and Transient Field Spectroscopy

0072915
Rogers
This experimental program, involving undergraduate student
participation as an integral component, investigates nuclear
structure through the measurement of ground and excited state
magnetic moments. A major goal of this program is better
understanding of the roles of single particle and collective
behavior in determination of nuclear magnetism. Ground state
moments of beta-unstable nuclei are measured using the beta-NMR and beta-LMR techniques. The experiments are conducted primarily at NSCL (Michigan State University) and secondarily at GANIL in France, with colleagues from MSU and the University of Leuven, Belgium. Excited state moments of deformed nuclei in isotopic chains are measured using the Transient Field technique, and the experiments are conducted at Lawrence Berkeley National Laboratory with colleagues from Rutgers University.
Participation of undergraduate students is a key element in this
experimental program.